Use of Hands-On Nuclear Magnetic Resonance Spectroscopy to Strengthen the Organic Chemistry Laboratory Program

With the acquisition of a nuclear magnetic resonance spectrometer the chemistry department is strengthening its laboratory courses by providing students with additional opportunities to use instrumentation. Compound identification capabilities are being increased, particularly in the Organic Chemistry Analysis Laboratory. However the students also take a Senior Seminar, which is an undergraduate laboratory research course, where the instrument is having a decided impact on the nature of the problems that can be undertaken. The grantee is matching the award from non-Federal sources.